A Plant Protein Kinase and A Phosphatidylinositol 3-Kinase Involved in Vacuolar Protein Transport and Development

96-30108 DeWald The plant cell vacuole is functionally similar to fungi vacuoles and to lysosome of mammalian cells. In addition, plant cell vacuoles have other functions; they function in regulating cytosolic pH, osmotic shock, and in the storage of proteins. Plant vacuole can occupy up to 90% of the total cellular volume. The maintenance of vacuoles requires the specific sorting of proteins and lipids from their sites of synthesis to the vacuoles. The process of recognition, sorting, and transport of proteins to the vacuole is complex. More than 30 genes have been implicated in vacuolar protein sorting. The goal of the proposed research is to determine the role of a phosphatidylinositol 3-kinase (PI 3- kinase) and that of a serine/threonine protein kinase in protein sorting to plant cell vacuole. The specific objectives are to study 1) the role of Vps 34p PI 3-kinase activity in protein sorting to plant vacuoles in Arabidopsis thaliana; 2) the role of Vsp 15p, a protein kinase, in protein sorting to plant vacuole in A. thaliana. The gene for Vps 15p will be cloned and sequence. Cloning of the gene will be done by functional complementation of a Vps 15p yeast mutant by transforming with an A. thaliana cDNA library, or by PCR-based amplification of gene fragments that will be used to probe the cDNA library to identify the gene. The role of Vps 15p and of Vps 34p will be assessed in A. thaliana by examining tissue and temporal gene expression patterns in wild type plants, and by documenting the effects of overexpressing the gene in transgenic plants. It is expected that this data will provide new insights into how protein transport is regulated in plants. %%% The plant cell vacuole is functionally similar to fungi vacuoles and to lysosome of mammalian cells. In addition, plant cell vacuoles have other functions; they function in regulating cytosolic pH, osmotic shock, and in the storage of proteins. Plant vacuole can occupy up to 90% of the total cellular vo lume. The maintenance of vacuoles requires the specific sorting of proteins and lipids from their sites of synthesis to the vacuoles. The process of recognition, sorting, and transport of proteins to the vacuole is complex. More than 30 genes have been implicated in vacuolar protein sorting. The goal of the proposed research is to determine the role of a phosphatidylinositol 3-kinase (PI 3- kinase) and that of a serine/threonine protein kinase in protein sorting to plant cell vacuole. The specific objectives are to study 1) the role of Vps 34p PI 3-kinase activity in protein sorting to plant vacuoles in Arabidopsis thaliana; 2) the role of Vsp 15p, a protein kinase, in protein sorting to plant vacuole in A. thaliana. The gene for Vps 15p will be cloned and sequence. Cloning of the gene will be done by functional complementation of a Vps 15p yeast mutant by transforming with an A. thaliana cDNA library, or by PCR-based amplification of gene fragments that will be used to probe the cDNA library to identify the gene. The role of Vps 15p and of Vps 34p will be assessed in A. thaliana by examining tissue and temporal gene expression patterns in wild type plants, and by documenting the effects of overexpressing the gene in transgenic plants. It is expected that this data will provide new insights into how protein transport is regulated in plants. ***